Initial Stages of Epitaxial Growth of Silicides

Fundamental aspects of the interaction of transition metals with silicon surfaces, particularly Ni, Co and Pd on Si(111) will be studied using advanced surface characterization techniques including "hot STM" with on-stage deposition for in situ, real time observations of atomic scale processes, synchrotron X-ray diffraction for studying buried interfaces, and Low Energy Electron Microscopy (LEEM) which allows real time observations of crystal growth at high temperature. With these complementary techniques, we aim to first characterize stages of overlayer growth from atoms to clusters to islands to layers, and secondly to monitor the growth process between these stages, emphasizing the connection between bulk and surface silicide phases. The long term goal is to develop quantitative and predictive models for reactive crystal growth processes relevant to advanced processing methods including low temperature molecular beam epitaxy, codeposition and template layers. %%% This research is expected to provide fundamental new information about metal-semiconductor interfaces, particularly in the silicide systems, which are widely used for interconnects in VLSI technology. State-of-the-art surface characterization instruments and methods will reveal atomic scale features of surface interactions in real time as reactions occur. The metal/semiconductor materials under study have wide applicability in electronic and optoelectronic devices, and a greater understanding of their primary materials science properties is expected to improve the performance of devices made from these materials. New devices and device configurations may result from these studies as well as significant improvements in devices and integrated circuits currently used in computing, information processing, and telecommunications.